Robustness Studies in Design and Control of Chemical Plants

The overall goal of this project is to assess and improve robustness in chemical plant design and control. Robust plant designs were developed, based on singular value sensitivities of robustness indices. At the same time, robust decentralized control systems for interconnected process systems were also developed. Current work includes extension of previous research to large-scale systems, and its application to non-linear control systems.